Collaborative Research: Mitigating the Damaging Effects of Key Exposure

Project Abstract:

Systems are only as secure as their weakest point of attack. Indeed,
the only way to increase the security of a system as a whole is to
improve the resilience of its most vulnerable component. Much
successful research has focused on developing cryptographic protocols
which are secure as long as some information (i.e., a key) is kept
secret from the adversary. However, as such algorithms are
increasingly deployed on inexpensive, mobile, and unprotected devices
(e.g., laptops, mobile phones, and PDAs), the risk of key exposure is
becoming a serious threat to the security of many real-world
systems. This project aims to develop new paradigms and to design
efficient algorithms for maintaining security even in the event of a
key exposure attack. Among other topics, the project will focus on (1)
forward-secure public-key encryption; (2) forward secrecy in
key-exchange protocols; and (3) protecting signcryption schemes
against key exposure attacks. The techniques developed as part of this
research are expected to help improve the security of a number of
different systems, from handheld devices to ad-hoc networks.

Graduate students will be involved in all aspects of this project, and
undergraduate involvement will be encouraged as well. The techniques
stemming from this research will be incorporated into undergraduate
and graduate courses in cryptography and computer security. In these
ways, the project will help train future scientists in the important
area of information security.